Student Travel Support to attend the XII International Symposium on Self-Propagating High Temperature Synthesis hosted by University of Texas at Brownsville on October 21-24, 2013

Abstract
#1336172
Martirosyan

The XII International Symposium on Self-Propagating High Temperature Synthesis is hosted by University of Texas at Brownsville at South Padre Island, TX, October 21-24, 2013. Graduate students will have an opportunity to present their research results and to interact with experts from academia, government agencies, and industry across the United States and from abroad. The "off-the-record" format presentation and discussion led by the topic experts also offers the exchange of the emerging ideas of the field. The proposed funding is to provide support for registration for both GRS and GRC to student presenters.